Workforce Scholarship Project in Computer Science and Mathematics

This program recruits computer science and mathematics students who have successfully completed a college-level calculus course, paying particular attention to under-represented populations. Each CSEMS scholar is supported for up to four years, through completion of the bachelor's degree. CSEMS scholars benefit from the South Carolina Alliance for Minority Participation, peer supplemental instruction programs and other services in the Center for Student Learning, and the strong support for minorities provided by Intercultural Programs. Each CSEMS scholar participates in an industry internship, an undergraduate research experience, or supplemental instructional leadership.